Self Help Elementary Level Science (SHELS)

The technology-based "Self Help Elementary Level Science" (SHELLS) package is a three-year project to help teachers and administrators integrate science into their elementary programs. Twelve major obstacles to doing science in the elementary school have been identified and strategies have been designed for dealing with them through video and audio tapes and print materials. One set of video and audio tapes will show what to do to minimize or reduce the obstacles. Another set will teach basic physical science concepts. A third set will be explicitly helpful to administrators. In addition, experienced elementary teachers will model how to put them into practice with research based teaching examples. Thirteen video and six audio tapes with print materials will be developed. The intent is to provide administrators and teachers with instructional tapes to be used as a stand alone inservice program by individual teachers and principals or as a supplement to inservice and preservice activities conducted by trained leaders. Video production laboratories in the Colleges of Engineering, Medicine and Education at the University of Florida and at the Association for Supervision and Curriculum Development (ASCD) in Virginia will collaborate in the making of the tapes with scientists, supervisors, administrators and teachers from twelve institutions and districts. Dissemination plans for SHELLS recognize the value of working with professional organizations that have good access to administrators and elementary teachers. The Association for Supervision and Curriculum Development which has extensive experience in video education, publications and institutes for administrators and teachers will be the publisher of the SHELLS project and will take major responsibility for dissemination. The National Science Teachers Association will collaborate in dissemination as will the National Association of Elementary School Principals. Dr. Mary Budd Rowe, principal investigator, is well recognized for her research in elementary science education. Dr. Rowe's background and experience more than qualify her to conduct the project. This project addresses the goals of the Instructional Materials Program, particularly the application of an alternative method of delivering instruction. An award is recommended to Florida State University, Gainesville for the Self Help Elementary Level Science program.